Adapting to Advanced Computer Systems: An Experimental Study of Computer-Mediated Cognition

9202253 Smith This is the first year of a three-year continuing award to investigate how computer users adapt from the use of introductory systems to the use of more advanced systems. This study involves not only the issues related to user adaptation but also to the mediating effects that a computer system can provide. The methodology is based on comparisons of basic and advanced system tasks in the areas of expository writing and of computer programming. The cross-task transfer effects are also examined, as well as any noticeable longitudinal effects in patterns of use and adaption over time as subjects become more familiar with the systems. Variations in the graphical representations of the same structural information are also considered in the sequence of experiments. A methodological issue considered is the direct examination of the effects of the subject's "thinking-aloud" on potential behavioral distortions and completeness and consistency of the protocol data. The extension of current concepts to a more general cognitive architecture based on cognitive modes and strategies, applicable to a number of different intellectual tasks, is a goal of this investigation oriented towards the eventual development of computer systems more consistent with the manner in which users think.